Conference: Genomics and Epigenomics Workshop

This project will enhance knowledge and understanding of organismal aging mechanisms through a workshop highlighting key research focused on genomic and epigenomic mechanisms of aging across the animal kingdom. Within IISAGE, samples from numerous species from diverse taxa are being collected, however, there are groups of animals (and plants) that are not included in IISAGE. This workshop will be held at the Plant and Animal Genomes, a conference focused on advancing plant and animal genomics research. This conference draws participants largely from the agricultural sector of academia and industry, while leading genomics companies showcase their latest technology, products, and services.

Since IISAGE focuses on genomic and epigenomic mechanisms underlying sex-specific aging phenotypes from a comparative biological perspective, this conference offers an important opportunity to engage with academics from outside our cooperative agreement participants and leverage long-standing leadership of agricultural sciences in genomics research. Tangible outcomes will be new collaborations leading to new interdisciplinary grant proposals, peer-reviewed publications, presentations, and data sharing across siloed disciplines.